Crustal Structure of an Ultra-High Pressure (UHP) Metamorphic Belt: Integrated Reflection, Refraction and Gravity Modelling of the Dabie Shan, China

0106772
Klemperer
The Dabie belt of east - central China exposes extensive areas of ultra high pressure rocks, and considerable resources have been expended in understanding how these rocks representing metamorphism that occurred at depths of 100 km or more, reached the surface. This project seeks to add particularly to the subsurface data concerning these rocks by reprocessing a seismic line that was collected by the Chinese Geological Survey across the Dabie belt. Results should improve the knowledge of the subsurface geometry of these rocks and aid in understanding their ascent.